Mathematical Sciences: Boundary Behavior of Holomorphic Functions and Mappings

Work to be done continues a program developing the function theory on domains in n-dimensional complex space using the language of metric geometry. Recent progress made in the theories of Hardy spaces, Nevanlinna theory, boundary limits along curves and the theories of Lipschitz and Bloch spaces has provided considerable impetus to the directions this mathematical research will take. In particular studies of the Lusin area integral and other aspects of harmonic analysis will be carried out using the metric geometry approach. The long-term goal of this work is to develop a unified theory for boundary behavior of holomorphic functions in all dimensions in which the unifying language is that of Riemannian geometry. Specific topics to be undertaken include investigations into mapping properties of the Lusin area integral for strongly pseudoconvex regions using newly defined approach regions and a study of the regularity for the d-bar problem - a first order partial differential equation. The latter concerns extremely delicate norm estimates which cannot be achieved in conventional function spaces. New spaces will have to be developed to obtain sharp results. Additional work will be carried out to establish whether or not certain rigidity must occur in holomorphic vector-valued maps which exhibit higher order contact with the image domain. Such results are false in one complex dimension but considerable evidence exists suggesting that the situation is different in higher dimensions. Continuing efforts will also be made to understand the structure of automorphism groups of biholomorphic maps between domains. Powerful results show how these maps extend holomorphically across boundaries of strongly pseudoconvex regions. The next logical step will be to consider weakly pseudoconvex regions, especially those of finite type, to determine the extent of such analytic continuations.